The Temporal Logic of Reactive Systems

This project continues research aimed at turning the temporal-logic formalism into a practical tool. The goals are to establish a uniform temporal-logic methodology for the specification, verification, development, and synthesis of reactive systems, and to construct an experimental system that will provide automated support for these activities. The class of reactive systems considered includes concurrent, real-time, and hybrid programs, process-control and embedded programs, hardware devices, and other systems whose role is to maintain a continuous interaction with their environment. To attain these goals, the following topics are investigated; (1) deductive techniques for the synthesis of reactive modules from temporal specifications, (2) temporal specification and verification of hybrid systems, and (3) an automated support system for temporal proofs.